RIA: An Active Physics-Based Approach to Shape & Motion Estimation

9309917 Metaxes This is the first year of a three year continuing grant. This research addresses the problem of shape and nonrigid motion estimation using physics-based techniques and a general active vision approach. Almost all prior model-based shape and norigid motion estimation techniques assume prior data segmentation, simple parameterized models, fixed model size grids and a single viewpoint under orthographic projection. Real world images require far more sophisticated algorithms and models than the currently existing ones in order to robustly recover the shape and motions of the underlying objects. This research project will first explore new physics-based techniques for the fitting of models to image data in case of general orthographic, perspective, and stereo projections. Such data will include projections of complex objects with surface discontinuities appearing on the image as internal edges. Then, adaptive finite element techniques will be developed to improve the efficiency and accuracy of shape estimation through automatic local adjustment of the model's initial grid size. These efforts will be facilitated by the experience gained from the PI's previously developed physics-based modeling system for shape and nonrigid motion estimation.